CRII: RI: A Deep Gameplay Framework for Strong Story Experience Management

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

Experience managers are intelligent agents that produce personalized stories that change based on decisions a player makes in a digital game. These agents create new and powerful types of interactive stories for art and entertainment, training applications, and personalized education. A central problem for experience managers is avoiding dead ends, which are situations where story structure is broken due to a choice by the player. This problem results in experiences with un-interesting stories, missed training sequences, and long spells without appropriate targeted educational content. This project will develop a novel experience management architecture to quickly navigate around dead end situations during real-time interaction with a human participant. The architecture is based on recent advances in deep reinforcement learning for general game playing. This experience management platform will enable new forms of real-time training and education applications.

This work addresses a fundamental gap in existing experience managers that do not adversarially plan against sequences of player actions that lead to dead end situations. The specific research objectives are to create a deep reinforcement learning-based gameplay agent platform that (1) builds state spaces described by an action language, (2) identifies dead end states without performing exhaustive search, (3) relaxes assumptions of zero-sum and symmetric gameplay, and (4) solves narrative planning problems by compiling specialized narrative reasoning into a standard action language domain description. If successful, this research will significantly improve the speed and control of experience management agents and provide a pipeline to controlling existing and future specialized interactive narrative formalisms. These improvements will allow control of larger and more immersive narrative, training, and pedagogical environments compared to current systems.